National Forum for Action on the Report of the National Math Panel

The Conference Board for the Mathematical Sciences (CBMS) is collaborating with the U.S. Department of Education to host a forum in Washington, DC designed to launch action for change in mathematics education based on the recommendations of the National Mathematics Advisory Panel.

This forum will focus specifically on the following four areas:
- Teachers and Teacher Education;
- Learning Processes;
- Instructional Material; and
- Standards of Evidence - Research Policies and Mechanisms.